Conference on "Strategies for Teaching the Life Sciences to Undergraduates"

To catalyze improvements in teaching and learning in the life science at the undergraduate level a conference, sponsored by the Coalition for Education in the Life Sciences (CELS), is being held at the Marine Biological Laboratory in Woods Hole, MA from February 14-17, 1993. About 150 participants will consider effective teaching models and relate these models to changes in student assessment. Plenary topics include: 1) how biology can contribute to literacy and liberal education, 2) coping with the diverse field of biology, 3) developing an effective institutional plan for change at small and large institutions, 4) linkage to the life sciences education clearinghouse, and 5) a training workshop that will provide information about how to get educational sessions incorporated as part of the regular meetings of professional societies. A Proceedings is planned that will contain the abstracts of contributions and summaries of the plenary sessions. This award is to support the production and dissemination of the Proceedings.